WebProject-A Web-based Construction Management Gaming System

Engineering - Civil (54)

This project is producing an integrated educational framework to expose construction management students to the complexities of the construction site. The project is accomplishing this important goal through the development of a prototype web-based construction management gaming system - called WebProject - that integrates construction estimating, construction scheduling, and construction project management courses. Students entering the sequence of construction core courses receive a hypothetical construction project generated by WebProject that is utilized in the three courses. Teams of students undertake the role of construction management companies to perform construction estimating, construction scheduling, and construction project management functions by using the services of hypothetical trade contractors generated by WebProject.